String Theory and Brane World

Research in theoretical physics will include work on superstring theory, including studies of underlying unifying structure and its applications for deeper understanding of quantum field theories. Superstring theory is the only known candidate for unifying all known forces of nature. Moreover, the insights and tools it provides for understanding quantum chromodyamics, the theory of the strong nuclear force, are invaluable.